CyberTraining: Pilot: CAV-CI: System Security Training in Connected Automated Vehicles for the Next-Gen R&D Automotive Workforce

Modern vehicles are rapidly becoming connected and autonomous, depending on software, artificial intelligence, and networked cyberinfrastructure as much as on mechanical systems. This shift has created an urgent national need for engineers who can both build and secure these systems, yet the current automotive workforce, trained largely in mechanical engineering and computing, has limited exposure to the tools and security practices that connected and automated vehicles now require. This project addresses that gap by establishing a CyberTraining pilot program at The University of Alabama that prepares the next generation of automotive research and development engineers through an intensive summer program pairing classroom instruction with extensive hands-on practice. Located in the heart of the Southern Automotive Corridor, home to major manufacturers such as Mercedes-Benz, Honda, Hyundai, and Toyota, the program responds directly to regional and national industry needs and trains 30 participants over two years. The program uses simulation and hardware-in-the-loop environments that eliminate the cost barrier of real autonomous vehicles, making advanced CAV-CI training safe, accessible, and reproducible. All training materials are released openly under a Creative Commons Attribution license so that other institutions can adopt and build on them, strengthening the national pipeline of engineers capable of designing and securing safe, trustworthy intelligent mobility systems.

This pilot project develops and delivers an integrated, hands-on CyberTraining curriculum targeting discipline-appropriate, advanced cyberinfrastructure (CI) skills for connected and automated vehicles (CAV-CI) in undergraduate and graduate engineering education. The curriculum is organized into four modules: (1) sensor fusion and CI architecture; (2) deep learning for autonomy, treated as white-box models so trainees understand internal behavior, failure modes, and security implications; (3) hardware-in-the-loop and high-fidelity simulation-based verification using the CARLA simulation environment and physical testbeds; and (4) cybersecurity and trustworthy AI, covering adversarial attacks on perception, sensor spoofing, and corresponding defenses. Participants complete 62 hours of instruction reinforced by 6 laboratories and four projects totaling more than 90 hours of experiential learning, all conducted in simulation and hardware-in-the-loop environments that provide safe and reproducible conditions for studying adversarial scenarios that would be dangerous or prohibitively expensive on production vehicles. Materials are disseminated via GitHub and the NSF ACCESS Knowledge Base, and integrated into UA engineering curricula to ensure sustained adoption and impact beyond the award period.